SBIR Phase I: Automated DFM/DFA Constraint Satisfaction for Printed Circuit Boards

This Small Businees Innovation Research phase I project is investigate the incorporation of design for assembly and design for manufacture constraints into automated circuit board layout design software. Including these constraints will improve the capabilities of automated layout design software.

Successful completion of this research will shorten time to market for circuit boards, reduce design and prototyping costs, and improve final product quality. The improved performance of the software will minimize layout rework and contribute to achieving successful board designs on the first attempt.